U.S.-Hungary Research on Data Compression and Pattern Classification

WPC< 2 B J Z Courier #| x @W x 6 X @ `7 X @ HP LaserJet 4 (935-Mail) INTHP4-1.PRS x @ \ E X @ 2 6 V > Z Courier ? x x x , @W x 6 X @ `7 X @ HP LaserJet 4 (935-Mail) INTHP4-1.PRS x @ \ E X @ 2 * F Z : #| x INT 9315271 Zeger The primary objective of this U.S. Hungary research project between Dr. Kenneth Zeger of the University of Illinois and Dr. Gabor Lugosi of the Technical University of Budapest is to examine source coding problems and classification problems where it is desirable to conduct coding and classification together, for the same source. The researchers will study neural classification and consistency issues, universal vector quantization and empirical computer design. Efforts should lead to a better understanding of empirically designed lossy source coders, universal lossy source coders and statistical pattern classification. Results are expected to yield rate of convergence information for these techniques and may be applied to areas such as computer imaging in nuclear medicine. This research in computer communications fulfills the program objectives of advancing science and engineering by enabling leading experts in the U. S. and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.